CAREER: Robust Preconditioners for Sparse Linear Systems

This project will develop a new class of robust and parallelizable
preconditioners for the solution of sparse linear systems arising from
partial differential equations. The approach is based on a hierarchical
decomposition of the matrices associated with the linear system, and is
designed to improve the effectiveness of the preconditioner without
compromising the parallelism inherent in the computation. A formal
methodology will be developed for construction, application, and
analysis of these preconditioners. Effectiveness of these techniques
will be tested on problems in incompressible fluid simulations. Parallel
implementations of these preconditioners will be developed and their
performance evaluated for various multiprocessor platforms. Parallel
libraries will also be developed and made available to others via the
internet. As part of the educational plan innovative techniques will be
employed for curriculum development in computational science and
engineering, and university wide workshops and seminars will be
organized for the research community.